High-Performance Switch Architectures for CC-NUMA Servers

The Cache-Coherent Non-Uniform Memory Access (CC-NUMA) architectures are rapidly becoming a standard for scalable multiprocessor design. The main problem with such architectures lies in the large remote memory access time. This project deals with designing novel switch architectures for the CC-NUMA machines to alleviate the memory latency problem. Custom switch designs are being developed based on dynamically allocated combined buffer and wormhole routing with virtual channels. The switch arbiter is redesigned to provide different priorities for different type of messages as applicable in a shared memory environment. A new switch cache architecture is being developed which uses the buffers as a cache inside the switch to support data sharing between the processors, as a prefetch or victim buffer, and as distributed directories to maintain cache coherence. Hardware and software support for processor and memory management is also being investigated. Study of the behavior of shared memory applications forms an integral part of the project. The new designs are incorporated in to an execution-driven simulator and the performance improvement of various scientific and commercial applications is being measured.